Axial Migration of Algae in Laminar Flow: Towards a new Separation Technique

This research program will investigate the migration of small particles in flow through tubes in order to determine whether such migration can be used as a basis for separating algal matter according to their size and other appropriate physical properties. The objective is to study systematically, using model systems, the individual effects of tube gemetry, flow parameters and cell parameters and concentration on the extent of migration and segregation. This information can then be employed in designing an energy- efficient algal harvesting technique, which will be of vaue to the biomass industry.